NSF Workshop on Instrumentation, April 16-17, 1999, Arlington, Virginia

The Chemical Instrumentation Program is providing support to Julie A. Leary of The University of California in Berkeley to conduct an NSF workshop on chemical instrumentation. The proposed format of morning keynote speakers and afternoon panel discussions is designed to establish a forum for discussing instrumentation issues relevant to NSF and academia, such as (i) important developments in instrumentation; (ii) shared vs. single user instrumentation; (iii) service facilities: service, research, and teaching; and (iv) instrumentation needs for institutional research infrastructure. The overall goal of the workshop is to provide advice to NSF on funding issues related to instrumentation development, acquisition and infrastructure. The workshop will be held on April 16-17, in Arlington, VA., with roughly 65 participants from academia, government and instrument manufacturing companies.